Chapman Conference on Volcanism and the Earth's Atmosphere; Island of Thera, Greece; June 17-21, 2002

This project provides travel support for graduate students and early career scientists to attend the Chapman conference on Volcanism and the Earth's Atmosphere. The Chapman conferences are topical meetings sponsored by the American Geophysical Union that are designed to promote opportunities not normally available through the format of larger scientific meetings. This year's Chapman Conference will focus on the effects of volcanic eruptions on the Earth's atmosphere and environment and marks the 10th anniversary of these conferences. The meeting will be held on the island of Thera in Greece, the site of the Santorini eruption in the Late Bronze Age and one of the most important volcanic eruptions that profoundly affected civilization. It will draw together experts from the climatology, volcanology, glaciology, and petrology communities to review recent work and plan for joint efforts to further progress in this field.